Mathematical Sciences: Fractal Encoding of Rock Fractures

This project unites the mathematical theory of iterated functions systems with the geophysical (observable) phenomena of rack fractures. The aim is to determine whether or not rock fractures can be characterized by iterated function system codes, and if so, what predictive validity these codes might then have for fracture-related phenomena. This award supports the cross-disciplinary efforts and the development of a research collaboration involving quantitative modelling in the geosciences. In particular the mathematicians and the geophysicists will focus their attention on mathematical models derived from chaotic dynamics to model and predict rock fractures and related phenomena.